Presidential Young Investigator Award

The P. element transposon of Drosophila melanogaster is of importance for transformation of the fruitfly but is also of intrinsic interest as a biological phenomenon. It has been described at the molecular and genetic level by several laboratories. The transposon moves only in somatic cells although it is present in germ line cells. The answer to that mystery was found to lie in the processing of the transcript. The transcript contains three introns and in somatic cells, all three are processed out to form a mature mRNA. In germ line cells, one of the introns is not processed out and the mature message is not completed. The present study is directed towards understanding the genetic control of P. element transposition using an integrated approach utilizing genetics, biochemistry and molecular biology. An attempt will be made to develop an in vitro system in order to study the biochemical mechanism of transposition as well as the factors involved with differential splicing events. This study should result in greater insights into gene regulation at the cellular and genetic levels.